Ontology and Quantification In Early Childhood

New methodologies have opened up the possibility of discovering how young infants perceive the world around them, and even how they think about it. This research will examine the relations between infants' representations of objects and substances and early language learning. The studies will establish the ways in which language learning requires children to conceputalize the world in new terms and the ways in which language learning simply requires children to learn how their language expresses the concepts they already possess. One series of studies will explore how babies establish representations of distinct objects in their environment, and how they track identity of these objects over time. Previous research has discovered a change in the criteria for object individuation and object identity beginning around eleven months of age that is related to learning to comprehend object labels. Other series of studies will explore the processes underlying word learning by 2- to 4-year-old children, documenting continuing changes in lexical representations throughout the preschool years. These studies will shed light on fundamental questions concerning the relations between language and thought. Furthermore, they will contribute to a deeper understanding of normal language and cognitive development, in terms of which abnormal development can be better understood.